Properties of Simple Liquids and Glasses

9705750 Granato Measurements of the shear modulus near the glass temperature are made to determine the temperature dependence of the shear modulus and the viscosity in the glassy and supercooled liquid state of bulk amorphous materials. Interstitial concentrations derived from these measurements are used to predict changes in low temperature properties with the help of the interstitialcy theory of simple liquids and glasses. A favorable comparison of predictions with measurements of the Boson peak heights should lead to unification of the two large areas of research on glasses at low temperatures and near the glass temperature. Also, this should establish the Interstitialcy Theory as a basis for the understanding of the properties of glasses and supercooled liquids, providing a scientific foundation not otherwise existing for the growing technologies based on amorphous materials. %%% Knowledge obtained from this research is important to the understanding of material properties in superconductors, amorphous materials and glasses. ***